The Computational and Experimental Study of Enzymes + LigandInteractions

Isocoumarins exhibit strong inhibition with elastases (human leucocyte elastase (HLE) and porcine pancreatic elastase (PPE)). Structural and chemical information permit a plausible mechanism to be proposed for action. The preferential binding mode, however, is dictated by a complex set of interactions of the specific isocoumarin derivative with the active site residues. To date, no two isocoumarins bind in the same way. In order better to understand binding interactions and preference the high-resolution crystal structure of 7-TosPhe-4-Cl-3-methoxy isocoumarin bound to PPE will be studied. This is the most potent isocoumarin inhibitor of elastase currently available. The structure will be refined and structural results will be evaluated and related to the database of structural information on other elastase complexes.